Genetic and Molecular Analysis of a Yeast Glucose Transporter

These studies of the global regulatory circuitry for the glucose response have led to the identification of a gene (SNF3) from yeast that is essential for high-affinity glucose transport. It has been cloned and the sequence analysis indicates that it encodes a membrane protein with homology to a major human glucose transporter. Thus, the evidence indicates that the SNF3 gene encodes a glucose transport protein. SNF3 is the first glucose transporter gene identified in yeast. The structure, regulation and function of this gene and its protein product will be studied using the powerful genetic and molecular techniques available in yeast. The objective is to understand the role of the SNF3 protein in the response to glucose availability.%%% The analysis of a yeast glucose transporter will lead to an understanding of mechanisms by which eukaryotic cells respond to changes in glucose availability. This laboratory has carried out a genetic and molecular genetic analysis of the glucose regulatory response in yeast (Saccharomyces cerevisiae). This organism was chosen to study because the genetics of this small eukaryote is highly developed. Thus biochemical and molecular methods, and also very powerful genetic approaches can be brought to bear on the problem. Studies in recent years have shown that yeast shares many of the key features of higher eukaryotic cells; thus, much of what is learned will also apply to mammalian cells.***